Nitrite Oxidation in Oxygen Minimum Zones

This research is grounded in the fundamental role of nitrogen in limiting production in the ocean. Nitrite is a pivotal compound in the nitrogen cycle: it can be oxidized to nitrate, and thus retained as an available nutrient, or it can be reduced to dinitrogen gas, and thus lost from the bioavailable nitrogen pool. Oxidation of nitrite by nitrite oxidizing bacteria (NOB) is the only biological pathway by which nitrate is produced, and all known NOB require oxygen for life. The reduction pathway is also carried out by microbes, in this case, bacteria that thrive only in the absence of oxygen. In previous experiments, however, both oxidation and reduction of nitrite were detected in the same samples from ocean waters in the absence of oxygen. We will investigate three explanations for the apparent oxidation of nitrite in the absence of oxygen on a research cruise to the low oxygen waters off the coast of Peru: 1) The presence of unknown kinds of NOB that do not require oxygen; 2) a new reaction called dismutation, which is possible but never detected in nature; 3) an artifact associated with oxygen stress in NOB. This research could lead to discovery of novel mechanisms and or novel organisms that determine the fate of nitrite and the availability of nitrogen to support primary production in the long run. This project will advance discovery and understanding while promoting teaching, training and learning by providing opportunities for Princeton students to get involved in and have hands on experience in research in the lab and potentially at sea. Both undergraduate and graduate students will participate in the research through internships and field experiences. We will also integrate our work at sea into teaching in the classroom via videos and assignments based on data collected during the cruise.

Nitrite oxidation is the only known biological process that produces nitrate, which comprises the largest fixed nitrogen reservoir in the ocean. Nitrite oxidation is carried out by nitrite oxidizing bacteria (NOB), and all known species are obligate aerobes. Nitrite reduction to N2 occurs in multiple microbial pathways, generally under anoxic conditions. Despite their apparent incompatibility regarding oxygen, both processes are detected in the low oxygen or anoxic waters of oxygen minimum zones (OMZs). Thus, the fate of nitrite in OMZs has implications for the global fixed N budget. Nitrite oxidation is detected at high rates in essentially zero oxygen water in the most oxygen depleted depth intervals in OMZ regions, which suggests that some nitrite oxidizers might possess anaerobic metabolic capabilities. Nitrite disproportionation (or dismutation), in which nitrite is simultaneously oxidized to nitrate and reduced to N2, is a thermodynamically favorable reaction, which would link the two processes in one organism – but it has never been observed in nature. The research proposed here will address two big questions about nitrite in the ocean: 1) How does anaerobic nitrite oxidation work? 2) What determines the fate of nitrite? The experimental approach will investigate three possible explanations for anaerobic nitrite oxidation: 1) Nitrite is oxidized to nitrate by different clades of NOB, which exhibit different tolerances/requirements for oxygen; 2) Nitrite dismutation, also performed by NOB, partially explains the cooccurrence of oxidation and reduction of nitrite; 3) Apparently anaerobic nitrite oxidation is indeed biologically mediated but does not always represent net production of nitrate from nitrite; rather it results from isotopic equilibration during enzyme-catalyzed interconversion of nitrite and nitrate. These questions will be addressed by performing a suite of 15N-tracer incubations at stations located within and outside of one of the major OMZs in the ocean, the Eastern Tropical South Pacific. The dependence of the rate processes on oxygen concentrations will be determined, and the composition of the microbial assemblages will be assessed in order to determine whether different microbial components are involved under different environmental conditions. The expression of genes involved in oxidation/reduction/ respiratory metabolisms at low oxygen concentrations will be measured across oxygen gradients and in oxygen manipulations to identify their potential role in supporting “anaerobic” nitrite oxidation. The possibility that the apparently anaerobic nitrite oxidation is due to an enzyme level interconversion between nitrite and nitrate, which does not lead to net nitrate production and is not linked to growth of nitrite oxidizing bacteria, will also be investigated.